MGR Honorable Mention: Dolores V. Bradley

This special award will give Ph.D. student Dolores V. Bradley additional flexibility in pursuing her graduate studies and research initiation in experimental psychology. This award will strengthen minority participation in research in this area.